Workshop: Performance vs. Methodology in Computer Vision

9320958 Meer This joint NSF/ARPA award funds a research planning workshop to be held on June 24-25, 1994 in Seattle, Washington, following the IEEE Conference on Computer Vision and Pattern Recognition. The workshop will bring together statisticians and computer vision researchers for discussion of improvement of the reliability of computer vision algorithms by use of robust statistical estimation methods which tolerate partially incorrect data, and methods for estimating the confidence in the output of a computer vision task by either analytical or computer-intensive methods. This topic is very important to the computer vision field, as it should help to improve the linkage with knowledgeable statisticians, and lead to more cogent application of statistical knowledge to computer vision research. The funding will provide partial support for many of the attendees, who will also be attending the Computer Vision and Pattern Recognition Conference just prior to the workshop, and will enable a number of others not involved in the CVPR conference (primarily statisticians) to travel to the workshop. A proceedings will be made available to requesters at a modest handling cost following the workshop.